RET Site: National Nanotechnology Infrastructure Network (NNIN) RET Program

This award provides funding for a three year standard award to support a Research Experiences for Teachers (RET) Site program at Georgia Institute of Technology, entitled, "RET Site: National Nanotechnology Infrastructure Network (NNIN) RET Program," under the direction of Dr. Nancy Healy. The objectives of this program are to assist a total of 45 in service and pre service science teachers in understanding and communicating the importance of using inquiry-based methods to solve problems by doing research in nanotechnology; establish a long-term mentorship support group of teachers who will become advocates for nanotechnology education and careers; nurture a mentorship community between professors, graduate student mentors, and science teachers in high-need school districts; and build a library of classroom modules, quicklabs, and activities for the classroom.